Purchase of a Focused Ion Beam System

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Harvard University will acquire an FEI DualBeam 820 focused ion beam workstation. This instrument will facilitate research in a number of areas, including a) studies of step coverage in chemical vapor deposition of thin films; b) deposition of barrier materials; c) high dielectric constant materials; d) electrical properties of one-dimensional nanostructures; e) construction of nanotube probe microscopy tips; f) high resolution near-field fluorescence microscopy with nanofabricated metal tips for spectroscopic imaging of photosynthetic membranes; and g) near-field coherent anti-Stokes Raman spectroscopy studies of biological membranes.

A focused ion beam (FIB) in conjunction with a field-emission scanning electron microscope allows high-resolution in-situ imaging/monitoring of the nanofabrication process. The ability of FIB to fabricate and manipulate materials at the namometer scale is indispensable to the materials chemist since this length scale, which bridges both molecular and bulk systems, is expected to be the focus of much of chemical research in the future.